U.S.-Australia Cooperative Research: Molecular Genetic Analysis of Normal and Mutant Visual System Development Studied with 3-D Time Lapse Microscopy

9731607 Pollock This cooperative research project between Professor John Pollock, Department of Biological Sciences, Carnegie-Mellon University, and Professor Philip Batterham, Department of Genetics, University of Melbourne, focuses on the molecular genetic analysis of normal and mutant visual system development of Drosophila melanogaster. The U.S. and Australian researchers and their laboratories bring complementary expertise to this study: image analysis and tissue culture in Pollock's laboratory, and molecular and genetic expertise in Batterham's laboratory. The research plan involves a multifaceted attack on the role of played by the lozenge locus in the progressive recruitment and differentiation of cells in the developing eye. This research should provide further understanding of how eyes develop and also how lozenge influences the development of smell and taste. It will also provide a platform for the training of young researchers in an international setting.